Experimental Measurements of Grain-Boundary Diffusivities in Mantle Silicates

9315343 Graham This project will determine grain boundary diffusivities in enstatite, olivine, and diopside polycrystals as a function of temperature, oxygen fugacity (using CO/CO2 mixtures), and iron (and calcium in diopside) content. The effects of water (and hydrogen) fugacity on grain boundary diffusivity will be investigated by performing experiments using H2/H2O gas mixtures to control the oxygen fugacity. The research will elucidate the role of grain boundaries as conduits for ionic and electronic transport, which are important phenomena in both geosciences and materials sciences.